Engineering Research Equipment Grant: A Cryo Stage and a Digital Image Processor for an SEM

A cryostage and digital image processor for a scanning electron microscope is being purchased. This instrument is being used to view the morphology of asymmetric polymer membranes and to investigate the single-celled giant sporangiophore, Phycomyces. The cryostage increases the resolution of the scanning electron microscope by several-fold and permits the viewing structures of the order of 20nm without the distortion which may take place when structure replicas must be made for transmission electron photo micrographs. Results obtained using this instrument will provide additional confirmation of the membrane formation model and may contribute to the design of optimally designed asymmetric membranes for separation purposes. New information on the growth of single cells also will be forthcoming from the work on Phycomyces.